Simulating Navier-Stokes Turbulence as a Population of Interacting Wavelet-Based Diocrete Eddies

CTS-9819796
J. Lewalle/Syracuse University

The immense complexity of turbulent motions have made these flows quite difficult to describe analytically. This research will further the use of a novel wavelet representation of planar "turbulent" motions (e.g. those motions in a soap film) as a building block for the description of more general flows.